Minority Graduate Research Honorable Mention - Gregory Simpson

This special award will give Ph.D student Gregory Simpson additional flexibility in pursuing his graduate studies and research initiation in gene regulation as it relates to glyocoproteins. This award will strengthen minority research participation in this area.